CRI: ASSERT: Advanced System Security Education Research and Training Laboratory

Abstract
Proposal: CNS 0454437
PI: Kara L. Nance
Institution: University of Alaska Fairbanks
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: ASSERT: Advanced System Security Education Research and Training Laboratory

This planning award will enable the PI's team to plan for a regular proposal to support research in information assurance. The planning funds will enable the PI's to visit other lower 48 labs such as Purdue, West Point, and University of Southern California to enable them to plan a facility that complements existing capabilities in information assurance research. The PI's will work with other disciplines at the university, state government, the private sector and other stakeholders to plan a research activity that serves the unique needs of Alaska. The project builds on a prior NSF Collaborative Capacity Building Grant that enabled the institution to obtain certification as an NSA Center of Academic Excellence in Information Assurance Education. The planned full proposal will build on the education activities and resources developed under that award.